Solar Heated Enclosed Nursery Within a Pond to Head Start Shrimp

Temperature is one of the greatest limiting factors to successful aquaculture ventures in temperature climates. Because of this many US companies, that developed important shrimp culture technologies, have moved to more tropical climates to start shrimp farms, and sell the shrimp to the US. This project proposes to develop an aquaculture system to culture shrimp in temperate areas. A greenhouse will be built over a portion of the shrimp ponds and initially used as an enclosed nursery within the pond. As the shrimp grow and the weather becomes warmer, additional sections of the pond will received water warmed by the greenhouse. In this way, it will be possible to start growing shrimp earlier in the year. If successful, this approach will add about 45 days to the growing season, and will produce a larger marketable shrimp and improve the economic viability of the culture operation.